Undergraduate Research Experiences in Estuarine Processes

This award provides funding for a Research Experience for Undergraduates (REU) site that will host a total of fourteen students per summer during twelve weeks of summer research. The REU program is based on the theory that mentoring and networking are the most effective methods for recruiting students into a profession and for training young researchers. Students will be working with researchers at one of three estuarine and coastal research sites, including Horn Point Laboratory (HPL), Chesapeake Biological Laboratory (CBL) and the Academy of Natural Science Estuarine Research Center (ANSERC). Organizers of the program have four main goals including, 1) to foster a close student-mentor relationship 2) to have students develop and complete a scientific project, 3) to have students communicate their scientific findings, 4) to ensure students understand ethical issues involved in scientific research. Matching funding is provided by the Maryland Seagrant Program (MSGP).